Travel and Administrative Services in Support of Domestic and International Science and Engineering Activities Sponsored by the National Science Foundation

Courtesy Associates is providing travel and conference support services for panels which review proposals submitted to the National Science Foundation (NSF) and for other meetings of scientists, engineers, and mathematicians from outside NSF who give advice to NSF programs.